Permeability and Rheology of Partially Molten Upper Mantle Rocks

An experimental laboratory investigation of two interrelated physical properties of partially molten upper mantle rocks, permeability and rheology, is proposed. For both of these phenomena, the effects of grain-scale melt distribution, melt fraction, grain size and temperature will be studied. Experiments will be carried out on samples of olivine + basalt + clinopyroxene. The permeability experiments will focus on quantifying the rate of melt migration in response to capillary forces or to a temperature gradient. These experiments will yield the dependence of permeability on melt fraction and will provide constraints on the permeability of rocks crystallizing in a thermal gradient. The high-temperature creep (rheology) experiments will be carried out at high confining pressures in both the dislocation and diffusional creep regimes, with emphasis on the former. These measurements will concentrate on the development of constitutive equations, which can be used to extrapolate from laboratory to upper mantle conditions. This experimental program will provide permeabilities and rheologies for dunite, harzburgite and lherzolite.